A QoS Mapping Framework: QoS Talk

Recent advances have demonstrated how Quality of Service (QoS) at the resource management level brings content-rich applications, such as video-on-demand, visual tracking and tele-instrumentation, to our laboratories, and homes. In order for these applications to make full use of QoS and in turn impact our lives in a beneficial, secure and economic manner, fundamental mappings between QoS/ resource-specific and application-specific parameters must be addressed. Solving this problem is the next major step in bringing out the full potential of QoS.

Nahrstedt's research will address the systematic theoretical and experimental exploration of methodologies for matching between QoS/ resource and application requirements, resulting in a framework, called 'QoS Talk". The primary objective of the research is to achieve effective "talking" between two different worlds. To achieve this objective, 'QoS Talk' project will (1) develop concepts for matching of local and distributed resource management environments to application requirements and their QoS guarantees, (2) provide theoretical framework, building on top of models such as fuzzy control, adaptive control, probabilistic models, and (3) implement a testbed.